Achaete-Scute Genes and Neural Differentiation in the Hindbrain

93-09803 Weinberg The nervous systems develops a myriad of cell types from $ !. !. ! F a seemingly homogeneous population of cells. The mechanisms responsible for developing these different cell types are still poorly understood. A family of genes, achaete-scute homologues, have been identified whose protein products appear to be involved in this process. Two new members of this family have recently been identified and will be further analyzed in this project. These genes are expressed in very specific regions of the developing hindbra in. These regions contain cell that will develop neurons shortly after these genes are first expressed. This project will seek to identify the specific cells that express these genes and to determine whether expression of these genes is a prerequisite for development of the specific fates of these cells. This project should make significant inroads into understanding hindbrain development and will offer new insights into the more general question of how different cell types arise in the nervous system $ $ " $ !. !. !. !. !. !. !. !. !. ( Times New Roman Symbol & Arial o o o D J d N O @ " $ $ " h j et eq e C weinberg William Proctor, IBN William Proctor, IBN